System Synthesis From Specification Charts

Gajski Research is on system synthesis where specifications are expressed in terms of a graphical language called "specification charts". It has sufficient expressive power to describe IC systems in terms of activities initiated and terminated by events. Topics are: 1. definition of the specification charts language; 2. determining how to translate the language into VHDL; 3. algorithms for partitioning the specifications into system components (e.g. chips) and for quality estimations using system quality measures; 4. incorporation of interface synthesis into system synthesis; and 5. evaluation of the tools being developed.